Electrodeposition from Nonaqueous Supercritical Electrolyte Solution

The objective of this research is to develop an experimental program to investigate the deposition of hard-to-plate metals from nonaqueous supercritical electrolyte solutions. The focus of the present study is to investigate the effects on the pressure- and temperature-dependent physicochemical properties of the solution in the mixture-critical region on the deposition process with nonaqueous mixtures of two solvents in order to avoid the extreme temperatures and pressures needed with supercritical water. It is not currently possible to a priori characterize the deposits produced by electrodeposition in the mixture-critical region fundamental information will be obtained which can be used to develop guidelines for controlling the deposition process. This work will lead to a novel way to electrodeposit hard-to- plate metals, such as aluminum, titanium, and lithium, from nonaqueous media which could potentially alleviate the difficulties associated with controlling the deposit quality or the stability of the solution. The key technical objective which must be addressed is determining the benefit of using a supercritical fluid electrolyte medium as opposed to a liquid medium. The impact of this work is to address the issue of deposition at moderate temperatures in a medium which has liquidlike solvent capacities and gaslike transport characteristics. The technical information generated here can have a major impact on similar processing techniques currently practiced with liquid-phase electrolyte solutions. Although it should be recognized that the advantages of using supercritical fluids depend on each specific application, deposition from supercritical electrolyte solutions could lead to new methods for producing materials such as thin film semiconductors, organic compounds, alloys, and electroformed superconductors.